Scripps Institution of Oceanography - Oceanographic Instrumentation

Scripps Institution of Oceanography (SIO) requests funds for oceanographic instrumentation that is needed to carry out NSF-supported scientific research. Working within the collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), the proposed instrumentation will be maintained by the SIO ship operations department for use by NSF-supported scientists from institutions nationwide who require these seagoing facilities. Instrumentation is requested to support the portable seismic capabilities of the Academic Research Fleet (ARF).

With this proposal, SIO provides technical descriptions and rationale for the acquisition of the following Oceanographic Instrumentation:

Acoustic Doppler Current Profiler Systems $143,288
Cyberinfrastructure $601,175
Motion Reference System Renewal for R/V Sally Ride $204,050
Multibeam Echosounder System Spares for R/V Sally Ride and R/V Roger Revelle $174,540
pCO2 System Upgrades for R/V Roger Revelle $52,241
MOCNESS Nets $22,908
$1,198,202

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.